Stochastic Parametric Forcing in Hydrodynamics

To study noise in the Navier-Stokes equations directly is a
formidable task, and so lower-dimensional reduced models are often
sought. The investigators introduce a new computational framework
for the study of high-dimensional nonlinear stochastic partial
differential equations, and apply this to hydrodynamic problems
for which there are well-controlled precision experiments with
which to compare. The main characteristics of the approach are:
(1) the noise is introduced in a physically motivated manner; (2)
the stochastic problem is reduced to a problem for the mean flow
and another for its variance; and (3) an efficient implementation
is developed involving state-of-the-art spectral discretization
and stochastic integration numerical techniques.

The equations governing hydrodynamics, the Navier-Stokes
equations, have been known for well over a century and have been
successful in describing many observed physical flows.
Nevertheless, the transition to complex flow and turbulence
remains an outstanding challenge; it is not clear what role noise
plays here. The investigators develop a novel framework for
studying the effect of noise on the properties, particularly the
stability and transition to turbulence, of dynamical systems
modeling fluid flows. The combined use of mathematical modeling
of stochastic processes, design of numerical algorithms, computer
simulations of physical problems and direct comparison with
experimental observations provides an enriching experience for the
students directly involved in the project. The ideas are also
incorporated into existing and new courses.